Geochemical Characteristics of Granitic Rocks Associated With Tungsten Deposits of the Western North America Cordillera

This project aims to determine the role of magmatic processes in the development of large or high-grade tungsten (W) skarn deposits associated with granitoid plutonism in western North America. Previous work on this subject will be augmented by further studies of (1) determination of contents of ore metals (W, Mo. Sn) in whole-rock and mineral samples of the plutonic rocks, (2) analyses for F, Cl, Li, and ferric/ferrous ratios in granitoid micas, and (3) stable isotope analyses of the plutonic rocks and associated alteration and ore minerals in selected intrusions. Goals of this work arc to establish whether or not the ore metals are intrinsically associated with the intrusive granitoid magmas, to infer compositions of associated fluids from analyses of the hydrous mineral phases, and to determine the extent to which mineralization and hydrothermal alteration are correlated. End results will be an improved concept of how the W ore deposits form.